National Urban Science Education Corsortium Workshop

This conference sponsored by the Education Development Center involves the newly-formed, National Urban Science Education Consortium. The Goals of the conference are to: increase participants knowledge and skill in developing and implementing district plans for systemic change in elementary science, increase participants' understanding of funding opportunities for facilitating systemic change in elementary science, and provide opportunities for continued networking about teacher education initiatives among the urban science educators. The conference will assist school districts to develop effective funding proposals and plan for systemic change. Participants will be assisted by a panel of representatives from urban school districts who have had a great deal of experience in such change programs as well as by experts in staff development,elementary science curriculum, assessment, and materials management.